A Rural Model for Connecting Young Scholars

The Montana State University will initiate a two-week, residential, Young Scholars project in engineering for 30 students in grades 8-9. This project connects high-ability/high-potential junior high students with a science/engineering university for science-related career exploration activities. The project begins with a two-week, summer, residential camp of lab and field experiences, followed by a structured computer-network set of activities designed to connect students in their local setting with each other, as well as with university scientists and career counselors throughout the academic year. Two other weekend meetings are held during the academic year to expose the students to the two other science/math/engineering universities in the State of Montana.